Residential Mobility Patterns and Residential Segregation: The Development and Evaluation of a Predictive Model

The goal of this project is to produce a mathematical model of the urban segregation process that incorporates both residential mobility behavior at the micro-level and urban structural factors at the macro-level. The model will be calibrated and evaluated using residential mobility and housing data from Dusseldorf, West Germany. When the model has been calibrated, the effects of policy interventions designed to affect segregation patterns will be simulated. Professor Huff's research will yield increased understanding of the ways residential segregation is created and maintained through social, economic, and geographic mechanisms that influence the ethnic mix of households moving into and out of small areas within cities.